RUI: Nuclear Structure Studies of the Stable Tellurium Isotopes

This RUI grant will support research by a University of Dallas faculty member and her students to determine the low spin structure of the nuclei of tellurium isotopes using (n,nOgamma) reactions. Excited states up to about 3.3 MeV can be studied using neutrons from the University of Kentucky Van de Graaff accelerator and the measurements include studies of lifetimes using the Doppler-shift attenuation method as well as gamma-gamma angular correlations to determine the spins of excited states. The work will involve a collaboration with a U.S. Naval Academy faculty member and his students as well as personnel from the University of Kentucky.